Behavior of Marine Clays Under Large Strain With Wave & Tsunami Loadings

The research proposes to investigate the behavior of marine clays under large strains with wave and tsunami loading. The wave induced forces have been continuously transporting soft sediments from shallow water depths to deeper parts of the ocean. It is proposed to examine the stability of the marine clays by subjecting them to similar stress paths and damage caused by the waves. A special testing device will be used to subject the clays to circular stress paths which can not be applied in conventional available apparatuses. Additional tests are proposed to relate plasticity index, over consolidation ratio and anisotropy of clay to coefficients of permeability. Finally an effort will be made to develop or modify an incremental plastic model which can simulate the effect of rotation of principal stress direction.